Teacher Enhancement Workshop in Field Biology and Geology for Middle School Teachers

A six-week field biology and geology workshop will be conducted by University of Dayton scientists for 20 Middle School teachers. It will focus on the acquisition and development of skills in problem solving and an additional knowledge base in ecology and geology. Emphasis will be placed on applied biology, field biology and environmental geology. The target group of teachers are the less well-prepared Middle School teachers in southwestern Ohio, including both large urban centers, such as Dayton, Cincinnati and Columbus and suburban areas surrounding the cities and the University. The first three weeks of the program will include an introduction to the principles of geology and ecology as well as discussion of local resources and their uses. Following that, the group will travel by vans to a field facility outside of Denver, Colorado to investigate the biology and geology of the area around the High Altitude Laboratory on the slopes of Mt. Evans. Because this project includes both a home-based study and a distant field site, teachers will experience a unique opportunity to participate in an exciting environment, and apply the field techniques to their local environment. Modules for school use will be developed with the assistance of project staff and mentor teams selected from previous participants. Six evening meetings and several field trips are included in the follow-up plans for the academic year.